Fourier-Transform Infrared Spectroscopy in the UndergraduateCurriculum

The Department of Chemistry is acquiring aFourier-transform infrared (FTIR) spectrometer to use in a variety of courses in the chemistry program. Students in Organic Chemistry II and III, Physical Chemistry III, Instrumental Analysis, and Physical Biochemistry are using the instrument in experiments involving solids, liquids, gases, and solutions, and particular emphasis is being placed on having the students discover the differences between the kinds of experiments and results which can be obtained on dispersive versus Fourier-transform instruments. A major use of the instrument is by undergraduates involved in three different ongoing research programs in the department.